Restructuring One Variable Calculus within a Modeling and Computer Oriented Environment

Mathematicians at Furman University will develop and pilot test an experimental one variable calculus course which builds and analyzes realistic models of dynamic processes, including 'chaos'. The course restructuring will start with sequences of real numbers, difference equations and end with differential equations. Global and qualitative behavior will be stressed by use of the computer. There will be modeling with symbol manipulation, discrete mathematics and numerical mathematical packages. The grantee is providing almost 60% of the cost of the project with purchase of equipment and in-kind services.